The Evolution of Communication and Cooperation

Nowak
0079000
The investigator and his colleagues develop new theories for
the emergence of communication and cooperation among individuals.
They focus on theories to explain the evolutionary transitions
from simple indexical signals through to iconic and referential
signs and finally to symbols and syntax in human language. These
transitions are related to increases in fitness brought about
through natural selection acting on communication strategies.
They approach these problems using evolutionary game theory and
population dynamics. The technical objective is to discover
evolutionarily stable solutions to language games, such that when
all individuals adopt these solutions, no mutant behavior can
invade the population under the influence of natural selection.
The challenge is to characterize the dynamics of the language
game by specifying a realistic set of strategies and payoffs, and
then to analyze the stability properties and accessibility of the
equilibrium solutions. The mathematical equivalence of the
game-theoretical replicator equation to the Lotka-Volterra
equation offers a large tool box of techniques from nonlinear
dynamics with which to explore the games. They also aim to relate
these results to findings in information theory, in particular
the formulation due to Shannon and Weaver (1949). Theoretical
studies of language therefore provide a set of fascinating
conceptual and technical challenges, as the strategies described
with the models must be rich enough to capture the symbolic and
open-ended properties of signals.
While cooperation and animal communication are both areas in
which much important theoretical work has been conducted, few
attempts have been made to bring them together. The study of
language provides an important focus for such a synthesis.
Theoretical studies of the evolution of animal communication have
stressed extravagant and costly ornamentation, using Darwin's
theory of sexual selection, whereas evolutionary approaches to
language tend to be represented by studies in historical
linguistics within human societies. It is the objective of this
project to occupy the center ground and provide a theoretical
bridge between these two disciplines. Thus the work is neither a
study of animal signals and cooperation nor a mathematical
investigation of human syntax and grammar, but rather an attempt
to reconstruct the continuous series of stages through which
evolution might have proceeded from one to the other. The project
does not not attempt to explain the glorious intricacies of human
grammar studied by linguists, such as in X-bar theory. Instead it
focusses on simple design features of animal communication and
human language and attempts to describe their evolution in
mathematical terms. These probably antedated grammar, phrase
structure, anaphora and related linguistic constructs, and
thereby provide some biological foundations upon which these
later concepts might rest.